Statistical Methods in Fast Functional MRI

The proposal focuses on developing statistical methods and related theory
for fast functional magnetic resonance imaging (fMRI), to sharply improve
the time-resolution of present techniques. Our objective is to improve the
time-resolution of functional magnetic resonance imaging by sampling only a
small fraction of the Fourier transform of the spin density, and using a
wavelet filter to approximately obtain, not the usual susceptibility map,
but instead an integral, representing the total activity, of the difference
in susceptibility between task and pre-task, over a prespecified region of
interest in the brain at successive time-points. This space/time trade-off
thus allows us to obtain, at high time-resolution, the total activity in a
specified region of the brain, believed to process the specific stimulus/task,
to learn or verify where the brain function takes place. An example of the
use of the technique is to learn where in the brain the "rolodex" of memory
is located whereby one recognizes a familiar face in a fraction of a second.
To try to find where the rolodex is located by a method which requires more
than a second is a doubtful project; better time-resolution is required (but
high spatial resolution is not). Although some researchers claim faster
measurement capabilities they sacrifice signal/noise.

Statistical methods and related theory will be developed to sharply improve
time-resolution for the technique of functional magnetic resonance imaging (fMRI). Our objective is to improve the time-resolution of fMRI by acquiring data from only a small fraction of the MRI sampling space, to approximately obtain the total activity of the difference in susceptibility between task and pre-task, over a prespecified region of interest in the brain at successive time-points. For a typical region of the brain, say describing the hippocampus, believed to be involved in memory, our optimal choice of the sampling region should give a ten fold speed-up compared to the usual method of sampling. An example of the use of the technique is to learn where in the brain the "rolodex" of memory is located whereby one recognizes a familiar face in a fraction of a second. This fast fMRI is expected to have profound and far-reaching consequences in the understanding of brain function, a problem of central scientific interest at the present time.